Doctoral Dissertation Research: Historical, Social and Cultural Roots of Experimnetal Surgery, 1960-1993

9320173 Clarke Ms. Monica Casper, under the direction of Dr. Adele Clarke, is investigating the historical emergence of experimental fetal surgery. Fetal surgery was considered as early as 1960 following several successful non-surgical fetal treatments. Research in the 1960's in New Zealand and Puerto Rico, in which surgical procedures were used to treat fetuses for Rh incompatibility, paved the way for subsequent experimental and clinical practices. Fetal surgery experienced a renaissance in the early 1980's when surgeons at the University of California, San Francisco, began surgically operating on fetuses in utero. There has been very little historical or social research on experimental fetal surgery. Ms. Casper is examining the historical, social and cultural roots of this practice, beginning with biomedical research in the 1960's. She is addressing three related sets of questions. First, what relationships have existed among basic physiological research, technological developments, and the emergence of experimental fetal surgery in the clinical domain, and how have these been shaped historically? Second, how are human and non-human fetuses conceptualized, used, and treated materially in contemporary scientific and biomedical practices? Third, what are the social, cultural, and institutional dimensions of contemporary experimental fetal surgery practices? Under this grant, Ms. Casper is undertaking archival research and interviews in New Zealand and Puerto Rico focused on the experimental work of the 1960's. ***